Young Scholars in Engineering

9452679 Van Gaalen Dordt College seeks to provide an enrichment experience in engineering for a three-week, residential, residential, Young Scholars program followed by academic year activities. The program will serve 45 students entering grade 8 and 9. The project activities are designed to introduce students to various scientific and mathematical principles, particularly those involved in engineering, and reinforce them through a series of well-planned experiential activities. Activities include: lecture-oriented sessions, laboratory exercises, field trips to local business and industry, and research experiences which include student design projects.